Rigid Body Dynamics Simulator

This award is to support a postdoctoral associate to work in experimental computer science. The associate, James Cremer, will be working with Professor Joseph Kearney on simulations of complex mechanical systems. The research will consist of three parts. The first will have the associate continuing development of the SimLab system that will simulate reality using computational mathematics and physics. The second project involves collaboration with the Center for Computer Aided Design in order to incorporate engineering concerns in the development of capabilities in SimLab. The final project involves the development of high level programs to control the complex mechanisms that arise in rigid body dynamics specifications.